Effective Distributed Computing: A Reliable Objective-Base Environment for Computer Science Research

The Clouds Project at Georgia Tech is a research effort directed toward the development of a distributed object-based computer system. This award will aid in the establishment of an experimental computer research facility to support work to evolve the Clouds system from its current status as a research tool to a more robust system that will support a wide variety of computing research. This will involve further development of the connection between Clouds and Unix so as to provide the features of Clouds within a familiar environment; develop- ment of a distributed object filing system to support named, permanent objects; porting the Clouds kernel to more modern machines; and, eventually, providing a distributed operating system on top of the kernel, supporting such features as object migration for load balancing, a fault-tolerant job scheduler, global system monitoring systems, support for multi-cluster structuring, transparent replication of objects, and others. The Clouds system will also serve as a testbed for ongoing research in several areas including environments, software engineering and fault tolerance. The project will utilize a new shared-memory multiprocessor system and a number of new workstations to be acquired under the grant as well as equipment previously available at Georgia Tech. Under this award, the Clouds project will be substantially expanded and other research areas strengthened as well. It is also expected that the graduate program will continue to expand thereby providing additional needed doctoral level computer science graduates.